Learning Algebra and Methods for Proving (LAMP)

The Learning Algebra and Methods for Proving (LAMP) project tests and refines a hypothetical learning trajectory and corresponding assessments, based on the collective work of 50 years of research in mathematics education and psychology, for improving students' ability to reason, prove, and argue mathematically in the context of algebra. The goals of LAMP are: 1) to produce a set of evidence-based curriculum materials for improving student learning of reasoning, proving, and argumentation in eighth-grade classrooms where algebra is taught; 2) to produce empirical evidence that forms the basis for scaling the project to a full research and development project; and 3) to refine a set of instruments and data collection methods to support a full research and development project. LAMP combines qualitative and quantitative methods to refine and test a hypothetical learning trajectory for learning methods of reasoning, argumentation, and proof in the context of eighth-grade algebra curricula. Using qualitative methods and quantitative methods, the project conducts a pilot study that can be scaled up in future studies. The study produces an evidence-based learning trajectory and appropriate instruments for assessing it.
Over the past two decades, national organizations have called for more attention to the topics of proof, proving, and argumentation at all grade levels. However, the teaching of reasoning and proving remains sparse in classrooms at all levels. LAMP will address this critical need in STEM education by demonstrating ways to improve students' reasoning and argumentation skills to meet the demands of college and career readiness.
This project promises to have broad impacts on future curricula in the United States by creating a detailed description of how to facilitate reasoning and argumentation learning in actual eighth-grade classrooms. At present, a comprehensive understanding of how reasoning and proving skills develop alongside algebraic thinking does not exist. Traditional, entirely formal approaches such as two-column proof have not demonstrated effectiveness in learning about proof and proving, nor in improving other mathematical practices such as problem-solving skills and sense making. While several studies, including studies in the psychology literature, lay the foundation for developing particular understandings, knowledge, and skills needed for writing viable arguments and critiquing the arguments of others, a coherent and complete set of materials that brings all of these foundations together does not exist. The project will test the hypothetical learning trajectory with classrooms with high proportions of Native American students.